Collaborative Research: Does Mating-System Evolution Constrain the Adaptive Evolution of Other Traits?

All organisms must adapt to their environment or risk extinction. Because plants require pollen for seed production, many plant species have adapted to a lack of pollinators by self-pollinating, thus enabling them to produce seeds even in the absence of pollinators. Self-pollination, however, erodes genetic variation, the raw material for adaptation. This study examines whether self-pollination constrains the ability of plants to adapt to other important environmental challenges. Wild monkey flowers (Mimulus guttatus) will be divided into self-pollinating and cross-pollinating lines and their ability to adapt to one of the most serious threats that plants face - insect herbivores - will be tested.

This collaboration unites expertise in plant mating system biology and plant-pest interactions. This study is highly relevant to conservation biology which needs to understand how reduced genetic variation affects adaptation. Because many of the most important crops are self-pollinating (e.g., wheat and rice) and are constantly bombarded by pests, this study has important applied implications. This proposal will support a postdoctoral fellow, a research assistant, and four undergraduate students. Supplemental funding will be sought to train additional undergraduates and K-12 teachers.